CAREER: Orthogonalization Methods in Scientific Computing

9502292 Bramley The work proposed here involves research and teaching in scientific computation. The research primarily uses partial orthogonalization methods for solving applications that include incompressible fluid flows. First, a new class of incomplete orthogonalization preconditioners that preliminary results have shown to be more effective than standard preconditioners will be further developed and analyzed. Secondly, methods for solving constrained systems using orthogonal projectors will be further developed, and extended to nonsymmetric (full Navier-Stokes equations) problems, and other problems in fields such as electromagnetics. Both as a tool and a separate research interest a unified package of methods for computing orthogonal projections will be developed and distributed.